Technician Support: The NEPTUNE Multi-Collector ICP-MS in the WHOI ICP Facility

This project provides support for the development of new analytical protocols on the multicollector ICPMS NEPTUNE in the WHOI ICPMS Facility. It is the continuation (phase 2) of a three-year technician support grant that facilitated the development of multiple state-of-the-art analytical protocols since 2004. The following analytical developments are planned for the 2007-2008 funding period: (1) Using nickel as a new isotope tracer of oceanic processes, (2) In situ Pb and Sr isotope analysis of melt inclusions in OIB phenocrysts, (3) Low-level Os isotope analyses using transient laser signals, (4) In situ Mg isotope analysis of silicates and carbonates, (5) Detection of enriched isotope tags in marine fish otoliths, (6) Low-level Fe-isotope analysis of seawater, (7) Natural rhenium isotope variability, and (8) Selenium isotope determinations using online hydride generation. We anticipate that the NEPTUNE ICPMS will be a self-sustaining operation after the end of the funding period.